Workshop: Solid-State Sensors and Actuators Workshop (Hilton Head 2012). To be held June 3-7, 2012 in Hilton Head, NC.

Solid-State Sensors and Actuators Workshop (Hilton Head 2012)
Intellectual Merit:
The workshop will disseminate MEMS research and technology breakthroughs. The workshop consists
of 26 contributed oral papers, and 89 contributed posters. There will also be an open poster
session where recent work (and educational programs) can be discussed.
Broader Impact:
The workshop will have broad impact for the entire MEMS community. The knowledge gained and
experiences shared from the workshop will be captured electronically and broadly disseminated
via a website. By receiving travel support, students will get the opportunity to present their
newest research results among their peers. The discussions which result from such presentations
are invaluable as an educational aid. Benefiting from the recommendations and improved teaching
and training, students will be better prepared for both MEMS research and MEMS-focused careers